State of The Environment: Understanding Connecticut's Environment Through Interactive Map

The Science Museum of Connecticut (SMC) proposes a three- year exhibit project called The State of the Environment. This cost-effective project will serve over 500,000 citizens a year by producing two permanent exhibits - 2400 sf for SMC and 400 sf for SMD's Roaring Brook Nature Center -- and eight traveling exhibits for use primarily in connecticut's Priority schools. These innovative exhibits use highly accurate sculptural relief maps which are animated by laser graphics and responsive to visitor inquiries through a research-calibre database containing vast information on Connecticut's environment. Thorough evaluation will help SMC design visitor experiences that make map-database interaction attractive, easy to use and understand, and educationally satisfying. State accredited teacher workshops will give educators a firm grasp of database capabilities prior to its use in the traveling exhibits for schools. Traveling exhibits will support goals in Connecticut's NSF-funded Statewide Initiative. Teacher's Guides will facilitate in-dept investigations for high school science lessons. These exhibits will provide hands- on experiences with professional tools for environmental research, show how environmental maps are made, teach basic principles of environmental science, and provide-in-depth information about the ecology of an entire state.